Two-Day Workshop: Emerging Issues in Nanoaerosol Science and Technology

Abstract
CTS-0330513
S. Friedland, UCLA

The PI has requested travel support for the participants to the Nanoaersol workshop to discuss and identify the research needs in this important area. The workshop is scheduled for June 27-28, 2003 at UCLA. Various sessions, as outlined in the proposal, are planned and groups of experts are assigned to report in each group.

The workshop is designed to encourage collaboration between researchers in various field with the common interest in nanoaerosol science and engineering. A good mix of academe and industry participants adds to the effectiveness of this workshop.